Analysis of Geodynamo Simulations and Comparison with Paleomagnetic Data

9903194
Coe

Dynamo modeling has advanced to the stage that meaningful comparisons between simulated behavior of the geomagnetic field and observational data can now be made. The Glatzmaier-Roberts 3-D, dynamically self-consistent supercomputer computations employ both thermal and compositional convection in the core driven by various prescribed patterns of heat flux at the core-mantle boundary. They have now yielded simulations of the geomagnetic field totaling about one and a half million model years that exhibit dipole-dominated, stable polarity intervals punctuated by excursions and reversals. The investigators propose to analyze these geodynamo simulations in order to compare them with paleomagnetically observed field behavior, both time-averaged field data and records of directional excursions and polarity reversals. These comparisons will lead both to improved dynamo models and to a better understanding of processes and conditions in the core and deep mantle that are important in generating the Earth's field.